Computer Simulation of the Motion of Defects and its Influence on Flow and Molecular Orientation in Liquid Crystal Polymers

The motion of defects (disclinations) in liquid crystal polymers will be modeled theoretically and numerically. A regular array of such defects, their interaction, and their effect on bulk flow properties will be investigated. In addition, flow effect on defect orientation will be determined. These issues are of great importance for the prediction of processing conditions to achieve highly oriented arrangements in composite materials.